Acquisition of an Electron Spin Resonance Spectrometer

The technique of Electron Spin Resonance (ESR) spectroscopy allows chemists to conduct extremely precise high resolution studies on materials containing unpaired electrons (paramagnetic compounds). Such studies reveal information on molecular structure that is unavailable by any other technique. This award from the Chemical Instrumentation Program will help the Department of Chemistry at Rutgers University, New Brunswick to acquire an ESR spectrometer. The areas of chemical research that will be enhanced by the acquisition include the following: 1) Structure and dynamics of free radicals and radical ions generated by laser flash photolysis 2) Structure and of ground state and phosphorescent triplets 3) Magnetic interactions in copper and manganese containing proteins 4) Mechanism of the substitution radical nucleophile reaction 5) Free radicals generated on the surface of porous solids 6) Magnetic properties of ceramic conductors.